SBIR Phase II: Effective Treatment of Groundwater Pollution Using a System Utilizing Controlled Release Polymer Materials

This Small Business Innovation Research (SBIR) Phase II project will pilot field test controlled release polymers (CRPs) as an in situ chemical oxidation (ISCO) remediation material. With a controlled time release of the oxidant payload, the CRPs technology treats contaminated water over longer periods eliminating the occurrence of contaminant rebound resulting in overall shorter cleanup time and total cost. ISCO is the fastest growing field among sub surface contaminant remediation technologies. Current commercial ISCO deployment methods utilize liquid oxidants as reagents which possess short term reactivity (days). To address contaminant rebounding, these injectable formulations require costly re-injections. This project would result in a novel product that is environmentally benign and achieves sustained release of oxidative agents over extended treatment periods (months to years) with a single application. CRPs are a novel technology, offering a highly tunable remediation amendment for the $1.4B Chemical Treatment Remediation Market. Ultimately, CRPs based treatments will decrease exposure to groundwater contaminants known to cause many human health disorders.

The technical objectives in this Phase II research project will be to field test CRPs patented, controlled release polymer technology for in situ chemical oxidation of contaminated groundwater. To support field testing, a pilot scale manufacturing process for the initial minimum viable product established in Phase I will be developed. Manufacturability will be tested in terms of product quality and stability, throughput, and cost. CRPs formulations based on multiple oxidants, will be manufactured to address a broad range of environmental contaminants including chlorinated solvents, BTEX (benzene/toluene/ethylbenzene/xylene), PAH (polycyclic aromatic hydrocarbons), MTBE (methyl tert-butyl ether), and petroleum hydrocarbons. CRPs will be pilot tested at two field sites with impacted soil and groundwater. The rate and duration of oxidant delivery and contaminant degradation will be measured. In particular, pilot field testing will assess the ability of CRPs to eliminate rebounding. Field data and computation modeling will be used to create a remediation design tool to prescribe future CRP dosing deployment strategies. Collectively, this Phase II program will result in a clear understanding of in-field performance of the CRPs technology to guide future full scale deployment and market uptake.